Interactive Simulation Software to Enhance ODE Instuction

Proposal Number: 9361287 PI Last Name: Marchal The innovative use of computers offers an opportunity to dramatically improve the learning and teaching of ordinary differential equations (ODEs). The challenge is to identify an instructional tool that addresses a serious and prevalent problem common to ODE instruction--students' lack of a conceptual framework necessary to analyze and build mathematical models, and to solve complex problems. In response, IntelliPro proposes to investigate the feasibility of combining mathematical simulation, graphic animation, and hypermedia to create an engaging multimedia learning environment to significantly enhance students' understanding and working knowledge of ODEs. The researchers envision powerful, easy to use, and pedagogically meaningful interactive simulation, a computer "laboratory" that will allow students to examine the properties of linear and nonlinear systems, explore and construct realistic mathematical models, and apply intuitive understanding of the behavior of solutions of ODEs to hypothetical and practical situations. To determine technical feasibility, IntelliPro will (a) identify an instructional strategy and essential content material, (b) design a software structure and implement a proof-of-concept model, and (c)evaluate the software design, mathematics education, and product development, will conduct the research. ***y